REU Site Program for Physics at the University of Notre Dame 1993-1995

This action will continue the support for the REU Site at Notre Dame University. Approximately fifteen undergraduates will spend the summer participating in a broad research program covering a number of topics in physics. Participation by women and minority students will be particularly encouraged.